SBIR Phase I: Development of AI and Software Platform for Cost-Effective Soil Carbon Measurement and Assessment

The broader impact/ commercial potential of this Small Business Innovation Research (SBIR) Phase I project is to enable accurate soil health measurements. The proposed project will develop new machine learning (ML) models for accurate soil carbon predictions. The system will generate a statistically- and agronomically-significant soil carbon sampling design customizable for landowner preferences and the parcel’s characteristics. The envisioned system will integrate a handheld measurement probe and a cloud-based data analysis and management platform for automated, scalable, cost-effective, and authoritative soil carbon sampling.

The proposed project will develop a novel machine learning (ML) model for the in-situ prediction and analysis of soil carbon and development of automated sampling plans. The proposed system integrates a soil stratification and sampling plan design algorithm; software integrated with a handheld probe; and an integrated cloud-based analysis and data management platform. The research will address technical challenges including: (1) detecting complex covariates; (2) aligning stratification with soil carbon verification protocols; (3) developing novel digital pedology techniques; and (4) developing machine learning tools able to iterate measurement plans in near real-time. The system's outputs will enable parallel regional models and adaptive sampling plans.